Equidistribution problems and semisimple Lie groups

Title: Equidistribution problems and semisimple Lie groups

The investigator, in several joint works with W. T. Gan and
A. Eskin, has exploited methods from harmonic analysis and
ergodic theory to understand the equidistribution
phenomenon of integer representations of invariant
polynomials. The investigator proposes to continue her
study on equidistribution questions on homogeneous spaces
of semisimple Lie groups, especially those connected with
problems in number theory and geometry. For example, the
problem of understanding compact maximal flats in Riemannian
symmetric space or orbits of lattices in various homogeneous
spaces of Lie groups are of interest.

The application of ergodic theory and the representation theory
of semisimple Lie groups in number theory is one of newly discovered
tools in modern mathematics. The methods, when applicable, turn
out to be very powerful and solve some of the important problems which
pure number theoretic methods cannot deal with. The investigator
is interested in the problems at this intersection and
hopes to develop further tools to deal with them.